Numerical Investigation of Flow Field and Cooling Enhancement in Electronic Chip Configurations

The objective of the proposed research is the direct numerical simulation of heat transfer enhancement by resonant excitation of Tollmien-Schlichting instabilities in flows such as those encountered in air cooling of electronic equipment. The resonant excitation will be achieved by imposing an external excitation at a frequency equal to the most unstable flow frequency, and by spontaneously supercritical destabilization of the flow. The proposed research will address the issues of buoyancy and three-dimensionality which are present in electronic cooling configurations. In order to understand and quantify the physics of supercritical and resonant heat transfer enhancement, it is proposed to develop an efficient hydrodynamic-heat transfer numerical code based on the direct simulation of the unaveraged three-dimensional energy and Navier-Stokes equations using a spectral element-Fourier method. The numerical results from direct simulations will permit to validate and further develop heat transfer models, since computational modeling is still a fundamental tool of analysis in engineering practice.